Spectroscopic and Magnetic Studies of Metalloprotein Active Sites-Instrument Supplement

Funding for a new-infrared CD/MCD instrument is requested. Spectroscopic and magnetic studies of metalloprotein active site will be the focus of the research undertaken with this instrument. This research will continue the ongoing research on the electronic and geonetric structure of copper and non-heme iron active sites. Other researchers will use this instrument to investigate photosynthetic reaction centers, mixed valence molecular, and conduct chemical and spectroscopic studies of urease.